Development and Gender Inequality Among India's Districts

This research, conducted in India, explores how economic development affects gender inequalities and the social position of women. Official statistics are used to measure the gap be- tween males and females in (1) literacy rates and school gradua- tion, (2) childhood mortality, (3) labor force participation, and (4) occupational segregation. These gaps tend to be large in northwest India and small in the south. This geographical varia- tion provides the opportunity to study causes of gender ine- qualities. Data are analyzed from more than 300 Indian dis- tricts between 1961 and 1981. The research examines how patterns of gender inequalities -- and changes in them -- are related to growing industrialization, agricultural development, and social infrastructure (schools and medical facilities). A by-product of this research will be the creation of a computer- ized data base of district-level statistics usable by both U.S. and Indian social scientists.